An Interconnected Power System Educational Laboratory

9452344 Nwankpa The interconnected power system laboratory is designed to give the student an understanding of the important phenomena exhibited when operating and controlling modern day power systems. The main feature of this laboratory is that it uses real generators, transformers, motors, loads and relays interconnected through transmission lines to form a power system which operates at a frequency of 6O Hz and voltage level of 22O V. Experience gained at working in such a laboratory cannot be easily obtained using a software simulation package. The power curriculum has four on-going laboratories for studying machines, protective relaying systems, power electronics and high voltage, which are being interconnected so that students have the ability to practically learn about the dynamics and operation of the interconnected components. The system is monitored and controlled via a set of personal computers (PCs), which emulates an energy management system (EMS) and remote terminal units (RTUs). This allows the student to obtain a good understanding of the dynamics of the system, its limitations and methods of control. In essence a reduced version of an actual modern-day EMS center for a power utility is at the hands of the student.